Laboratory Improvement in Environmental Analysis, Robotics, and Laboratory-Integrated Management System

The Department of Chemistry and Chemical Engineering technology is establishing an automated chemical laboratory. Students are using the equipment to conduct environmental and hazardous waste analysis. The curriculum is being revised to introduce concepts and applications robotics, manufacturing